International Seminar on Wood Engineering -- Joint Project, to be held in Los Angeles, CA, Chicago, IL, and Washington, DC

This project consists of oranizing and conducting three seminars on the status of wood engineering on a national and international basis. The seminars will be conducted in Washington, DC, Chicago, IL, and Los Angeles, CA. During the 1991 calendar year. International experts will be invited to present state-of-the-art papers on the activities in their countries.